Board on Physics and Astronomy

9222966 Dwoskin This grant will support the activities of the Board on Physics and Astronomy of the National Research Council. These activities are: (1) to maintain an awareness of the status of research in physics and astronomy, (2) to identify emerging needs, and to (3) initiate studies that address these problems and that foster continued progress in these fields. ***